Symposium: Light-Emitting, Light Harvesting, and Light-Responding Organic Systems; San Francisco, CA; March 26-31, 2000

This award is given in partial support of an ACS Symposium on "Light-Emitting, Light-Harvesting, and Light-Responding Organic Systems" at the ACS National Meeting, San Francisco, CA, March 26-31, 2000. This symposium will address the fundamental issues, preparation, and applications of organic materials and devices. Three major areas will be in focus:
(1) Light-emitting materials and devices - photo -and electroluminescent materials for information technology;
(2) Light-harvesting materials and evices - wavelength-shifting and photovoltaic materials and devices for new energy sources;
(3) Light-responding materials and devices - nonlinear optical and photo-refractive materials, photoactive materials for chemical sensing and information technology, liquid crystals, and photonic bandgap materials.